Modern Concepts Integrated into the Biochemistry Laboratory

An undergraduate course in experimental biochemistry is revitalized by integrating modern biochemical research into an existing core laboratory curriculum. The project is designed around investigation of TBP, a protein transcription factor. The experiments consist of purifying a cloned fusion protein, and then testing the protein for transcriptional activity against wild type and mutant templates by measurement of mRNA synthesis in vitro, and for DNA-protein interactions in gel electrophoresis mobility-shift assays using probes generated by the PCR technique.